Collaborative Research: EHS: Components and Aspects for Embedded Middleware

Hsieh-Klefstad Abstract
---------

This research project is developing new software engineering principles,
techniques, and programming technology based on an improved understanding
of how crosscutting concerns, such as real-time behavior and memory
constraints, interact and can be modularized within embedded middleware.
This project investigates how a combined component-based and
aspect-oriented software engineering approach can advance the development
of embedded applications and middleware. Experience with existing
middleware for distributed, real-time, and embedded (DRE) systems has
illustrated both the benefits and the limits of implementing
configurability through previous approaches to components and aspects.
The research goal is to achieve expressive power through an
integration of components and aspects. The new model supports aspect
definition and application at the component level: aspects are constructed
through new compositional forms, and conversely, aspects introduce
functionality at the level of component definitions and interconnections.
Real-time predictability constraints are addressed through the model's
support for real-time Java: components and aspects adapt to real-time
concerns according to their contexts. The model allows developers to
manage complexity in new ways: by allowing flexible middleware
configuration; by supporting both component-like encapsulation and
controlled exposure to aspects; and by providing sound type checking of
middleware configurations. The new techniques are being validated through
the development of new, modular, and highly configurable DRE middleware
for real-time Java.

The knowledge that comes from this research will
drive progress in embedded systems development and enable more effective
techniques for modularizing concerns across application and middleware
boundaries. The project's technology is expected to be particularly useful for
designing and building embedded and real-time software systems, as well as software
systems in general. Both component systems and middleware have become
popular commercially; this technology should enable and demonstrate the evolution of future component systems and middleware.